Energetics of Complex Inorganic Materials

Studies of the energetics of complex materials will focus on three areas (a) high pressure phases, (b) order-disorder and solid solutions, and (c) oxides with transition metals in high oxidation states, including phases related to oxide superconductors. In each case, high temperature calorimetry (with an increasing emphasis on in situ studies above 800oC) will be combined with structural and spectroscopic studies and with theoretical modelling to understand the microscopic basis for macroscopic properties. High pressure synthesis will provide new materials. Emphasis will be on perovskite, spinel, ilmenite, K2NiF4, and related structures.